Paleomagnetic and Isotopic Study of Pre-Cenozoic Tectonics of South China

The tectonics of Southeast Asia involves accretion and amalgamation of disparate cratonic fragment and blocks over a considerable range of time. The Hunan Block of South China for example accreted to the Yangtze craton, but the age of attachment is poorly constrained and estimates range from Precambrian to Mesozoic. This project will examine Paleozoic and Mesozoic rocks in the Hunan block paleomagnetically to determine prior positions of thee constituent rocks and therefore to constrain the time of collision. Results will be of utility not only in South China geology, but in understanding Southeast Asia tectonics.